Acquisition of a Magstream Separator for Thermochronologic and Geochemical Investigation

9303909 Holm This award provides one-half the funds required for the purchase of a mineral separation system to be installed and operated in the Department of Geology at Kent State University. The University is committed to providing the remaining funds necessary for the acquisition. The Principal Investigator and students are involved in research in tectonics and geochronology which requires extensive use of mineral separates. ***